Engineering Foundation Conference on Flocculation, Sedimen- tation and Consolidation, Sea Island, Georgia; January 27- February 1, 1985

An Engineering Foundation Conference on Flocculation, Sedimentation and Consolidation will be held at Sea Island, Georgia, on January 27 - February 1, 1985. It is planned to review the status of these phenomena and to identify the critical research needs. Application of the work varies from mineral, civil, and chemical to coastal engineering. In addition, aggregation and settling in nonaqueous media is of significance in coal liquefaction, tar sands processing, paint and pigments, and electrophoretic display devices. Major problems exist in disposal of fine mineral wastes where settling and consolidation are important. The role of flocculation of clays with polymers in achieving this objective is not very well understood. Centrifuge modeling has improved the predictability of consolidation behavior of fine particle sediments, but the potential of applying the centrifuge model in conjunction with colloid and surface chemical aspects of particle interactions is yet to be explored.